MATHSTART, A Year's Units for Head Start Four Year Olds

This project matches the "at risk" population of Head Start and its staff with the expertise of the Hands On Science Outreach (HOSO) program in producing playful units of lesson guides, manipulative kits and teacher training. Working with mathematics consultants, three units (fall, winter and spring) have been designated around NUMERATION, CHANCE AND GEOMETRY. The activities in the program will be multi-cultural, multi-sensory and will focus around toys and games which the children will be able to take home and own. They will take into consideration the development of both large and small motor skills. There will be clear indications for interdisciplinary classroom use. Parent information will be available in English, Spanish, and Vietnamese, with a visual videotape component and meetings planned into the project. These should help apply home continuity for the relevancy of mathematics concepts to everyday activities. The MATHSTART units will be piloted, evaluated and refined in five demographically different Head Start programs in Maryland. After refinement, further dissemination will occur through both the Head Start and HOSO networks.